Acquisition of Ultrafast Laser System

9601516 Rodgers Bowling Green University This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at Bowling Green University acquire a laser system. This equipment will enhance research in a number of areas including the following: (1) excited state dynamics of metalloporphyrins and related macrocycles (2) photoinduced charge transfer between chromophores and colloidal semiconductors (3) ultrafast intramolecular electron transfer reactions in ion-pair systems containing (alkyl)n(phenyl)4-n borate anions (4) adaptation of photosynthetic prokaryote to changes in environmental light conditions, and (5) solvational control of negative activation energies for emission decay. A laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactivity and nonreactivity of molecules.